Physical Controls of Submarine Groundwater Discharge Dispersal and Mixing in Coastal Surface Waters

Coastal waters are harmed by excess nutrients and pollutants that can fuel algal blooms, degrade water quality, and damage habitats. Some of these materials enter bays and estuaries through groundwater that flows out of the seafloor. It is unclear how this discharged water spreads after it enters the ocean. This understanding is important because it helps communities protect fisheries, beaches, and ecosystems. The research team will study how groundwater that seeps into the ocean moves and mixes in shallow waters so that coastal managers and communities can better predict how and where nutrients and contaminants disperse. The project will also support public and student learning at the Waquoit Bay National Estuarine Research Reserve.

This project will combine field measurements and computational fluid dynamics models to characterize the structure, dynamics, and mixing of fresh to brackish submarine groundwater discharge plumes in coastal surface waters. Groundwater and water column properties from the bay floor through the overlying water column will be measured. These measurements will support development of an open-source computational fluid dynamics solver to evaluate how key physical processes control submarine groundwater discharge plume transport and mixing.